Three-Dimensional Teaching and Learning: Rebuilding and Researching an Online Middle School Curriculum

This project was funded by the Discovery Research K-12 (DRK-12) program that seeks to significantly enhance the learning and teaching of science, technology, engineering, and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models, and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects. The project, in collaboration with Oregon Public Broadcasting, will develop an online curriculum-based supported by a teacher professional development (PD) program by rebuilding an existing life science unit of Biological Sciences Curriculum Study (BSCS) Middle School Science. The materials will include strategically integrated multimedia elements including animations, interactive learning experiences, and enhanced readings for students, as well as classroom videos for teachers that will help all users gain a deeper understanding of three-dimensional learning. The project is designed to be an exemplar of fully digital Next Generation Science Standards (NGSS) aligned resources for teachers and students, creating an NGSS-aligned learning environment combining disciplinary core ideas with science and engineering practices and cross-cutting concepts. Using the powerful affordances of a digital environment, the project will invigorate and inspire learners and support teachers as only a media-rich environment can do.

The project will develop and research the project innovation, the combination of digital instructional materials for students and online teacher PD using a proven lesson-analysis framework. Although prior research has demonstrated the efficacy of the lesson analysis PD and curriculum elements independently, there has been little investigation of their joint ability to transform teaching and learning. The project will merge research and development in this project by incorporating a complex array of multi-component assessment activities, including classroom-based assessments, in a quasi-experimental study. Assessment activities will be designed using an evidence-centered design process that will involve the careful selection and development of assessment tasks, scoring rubrics, and criteria for scoring based on the performance expectations (PEs) and the best ways to elicit evidence about student proficiency with those PEs. The research, carried out by SRI International, will use multi-component tasks that will support inferences about student learning and advance understanding of how to assess NGSS learning. Project research and resources, which will include a digital, middle school life sciences unit, teacher PD and online digital resources, and related assessment tools, which will be widely disseminated to policy makers, researchers, and practitioners.